Oceanographic Technical Services, 2009 - 2011, R/V Blue Heron

University of Minnesota proposes to support technical services on R/V Blue Heron, an 86’ general purpose UNOLS research vessel operated by the UM Duluth Large Lakes Observatory as part of the University-National Oceanographic Laboratory System research fleet. They request support for basic services only. They will provide one technician on each lake-going research project of R/V Blue Heron to support lacustrine research projects and to maintain, calibrate and provide for qualified users items from their pool of shared-use research instrumentation. The budget in this proposal is for the first year of a 3-year continuing grant.